Symposium on Nuclear Astrophysics - A Celebration of Wily Fowler; Pasadena, California

9626805 Peck The mechanism by which stars produce energy is, with the exception of cataclysmic terminal events, the burning of nuclear fuel. The details of how this occurs has been a field of intense study for the past sixty years, necessitating knowledge of many subfields such as nuclear physics and stellar evolution. ***